Phonetic Structures of Dying Languages

ABSTRACTS Many languages are dying as the speakers die out or are absorbed into larger communities. Soon we will no longer know what these languages sounded like, or what articulatory gestures their speakers used. Their death will result in a permanent loss of data for future linguistic investigations. This research will investigate some of the dying languages that are most important from the linguistic point of view. Another major aspect of this project is that it will break new ground in providing standardized descriptions in quantified form using a set of basis phonetic measures, designed to characterize both specific and universal phonetic features. The final product will also include a fieldwork manual for those who wish to do similar work. Fieldwork will be conducted in collaboration with local linguistics. The principal phonetic and phonological patterns will be identified and illustrated in specially prepared material, along with supplementary material illustrating coarticulatory and other phonetic phenomena. The investigators will make both audio and physiological recordings including aerodynamic records for airstream mechanisms and the timing of articulatory gestures, and palatographic records for articulatory contacts. Audio recordings will be further analyzed in the UCLA Phonetics Laboratory. Fully illustrated and documented accounts of each language will be published so that knowledge of the sounds and the articulatory gestures involved in these dying languages will remain available for future researchers and can form part of the input to the formation of theories of phonetic and phonological universals.